Spectral Analysis for Data Mining

This research is concerned with the development, analysis
and empirical evaluation of algorithms for information
retrieval and data mining, primarily using spectral analysis.
A partial list of the fundamental questions
being addressed are: How should data be stored,
organized and processed so as to allow the most effective retrieval of
information? How can ``important'' structure and ``meaningful''
patterns be found within a large data-set? How and when can this
hidden structure be used to facilitate determination of missing data
or to ``clean'' data that is imprecise or partially incorrect?
What are appropriate models for data generation, and how can
these models be used to improve the design of data mining algorithms?

The researchers are studying applications that have already
received a great deal of attention and on which
empirical success has been achieved, including object
clustering and web site ranking. In addition, they are designing
and analyzing algorithms, and developing and analyzing models
for newer data mining problems, including collaborative filtering,
topic distillation, spam detection and prevention, and hierarchical
clustering. Matrix perturbation theory is the foundation for the
development of theoretical results. The researchers are also studying
new techniques for speeding up the computation of the SVD.
The theoretical research is being complemented by
experimental evaluation on real data sets.